MOA-IAA Y3-OD-9002-16 Memorandum of Agreement between Office of Acquisition and Logistics Management Office of the Director National Institute of Health and NSF for Access to CPS.

MOA-CIAG-Y3-OD-9002-16 between NSF and NIH for access to their Contractor Performance System (CPS)